NSF Young Investigator

9357238 Rogers This NYI award will support the research of a promising and accomplished young investigator. His research will include an experimental study of interactions between electrons and electromagnetic fields in high energy colliders. This will include such processes as beam environment and beam- beam dynamics, and the generation of coherent high energy photon beams. ***